Laser Spectroscopy and Electronic Structure Theory of Diatomic Molecules: Beyond Hund's Cases to Supermultiplets,Superconfigurations, and Channels (Physics)

This research combines experiment and theory in a continuing effort to formulate and test new approaches to the electronic structure of diatomic molecules. A key element is the recognition of natural groupings of electronic states into "super-states" (supermultiplets, superconfigurations, and channels) which reflect an approximate factorization of a complex, many-body system into weakly interacting sub-systems. A well chosen zero-order model can be useful in assigning, fitting, and interpreting a spectrum, but its greatest value lies in its revelation of interrelationships between observables, states and molecules. The beauty of molecular electronic structure lies in the simplicity and periodicity concealed beneath the complexity of a spectrum or in the enormous differences between the electronic level diagrams of two intuitively similar molecules.